Long Cycle Life Solid State Solid Polymer Electrolyte Cells

An attempt will be made to develop an all-solid-state secondaryt battery using conducting polymers as electrolytes. The Phase I plan is very well designed to establish feasibility. If successful, these devices should have very long shelf lives and high stability.